A revised signal suppression account of learned attentional control

Humans seek the most relevant information from their environment despite the presence of multiple distractors. Whether scanning the road for hazards while driving or trying to focus on reading in a noisy room, humans are continuously making decisions about where to focus their attention in order to minimize distraction. Despite its importance, many basic questions about the brain processes involved in focusing attention remain unanswered. The current project uses eye-tracking and neural measures in cognitive experiments that unite visual search and attentional control. The work explores how salient distractors can be inhibited and how signal suppression might be learned in order to prevent distraction when making decisions about attentional focus. The work could inform technologies that minimize distraction and aid understanding of why salient warning signals are sometimes ignored in applied settings.

Methods involve human participants searching visual images while learning to ignore distracting objects that have a consistent property (such as a specific color). Some experiments measure sudden eye movements (called saccades), which occur many times per second during visual search and can be monitored using infrared eye-tracking cameras. Other experiments directly measure neural activity related to attention and distractor suppression using event-related potentials (ERPs). The investigator’s preliminary data suggest that attention can rapidly and flexibly adapt to resist distraction. The present proposal aims to understand limitations on this flexibility. The ultimate goals are to understand how attentional systems in the brain decide what to ignore and to promote sustained attentional focus in both natural environments and human-computer interfaces.